III: Small: A Theory of Topological Relations for Compound Spatial Objects

Spatial data collections with an incomplete coverage yield regions
with holes and separations that often cannot be filled by
interpolation. Geosensor networks typically generate such
configurations, and with the proliferation of sensor colonies,
there is now an urgent need to provide users with better information
technologies of cognitively plausible methods to search for or
compare available spatial data sets that may be incomplete. The
objective of the investigations is to advance knowledge about
qualitative spatial relations for spatial regions with holes
and/or separations.

The core activity is the study of the interplay between topological
spatial relations with holed regions and topological spatial relations
with separated regions to address the potentially complex
configurations that feature both holes and separations. Three
characteristics of such a set of topological relations are addressed:
the formalization of a sound set of relations at a granularity that
allows for the distinction of the salient features of holed and
separated regions, while offering the opportunity to generalize to
coarser relations in a meaningful and consistent way; the relaxation of
such relations so that the determination of the most similar relations
follows immediately from the applied methodology; and the qualitative
inference of new information from the composition of such relations to
identify inconsistencies and to drawn information that is not
immediately available from individual relations.

The hypothesis is that combining the relation formalization with sound
similarity and composition reasoning yields critical insights for a
sufficiently expressive, common approach to modeling topological
relations for holed regions and regions with separations. The resulting
theory of topological spatial relations highlights a parallelism
between relations with holed regions and regions with separations,
which is most apparent when these regions are embedded on the
surface of the sphere, while some parts of these regularities are often
hidden in the usual planar embedding.

Since topological relations are qualitative spatial descriptions, they
come close to people's own reasoning, so that a better understanding of
the relations for compound spatial objects will have ramifications for
qualitative spatial reasoning, without a need for drawing graphical
depictions to make inferences. It also lays the foundation for
linguistic constructs to communicate in natural language spatial
configurations, ultimately leading to talking maps. An immediate impact
of this theory of topological relations between holed and separated
regions is on the querying and reasoning about dataset that are
gathered by geosensor networks.

For further information see the project web page:
URL: http://www.spatial.maine.edu/~max/holesAndParts.html